Enhanced Undergraduate Instruction in Graphics Science

This project is to create a computer graphics laboratory in the Department of Industrial Engineering. Twelve Tektronix graphics terminals and digitizing tablets will be connected to a host Vax computer. Three area of graphics will be stressed. In addition to the conventional uses for computer graphics, communication and documentation, the idea of "ideation" will be explored. This idea is to give the engineering student a graphical tool to enable the student to visualize the design of an item. This should help the student to be more creative without spending a lot of time at the drafting board making paper images.